Collaborative Research: RI: Interactive Video-Fueled Skill Learning

Skill acquisition is a lifelong necessity across physical, creative, and practical domains, with structured instruction shown to improve health, confidence, and long-term economic outcomes. While 1:1 coaching is highly effective for skill development technique, access to expert coaching is limited due to cost, geographic constraints, and reduced availability in public education settings. This project addresses this gap by developing AI-powered coaching from video. The system, SAGE (Skill Assessment and Guidance Engine), converts passive instructional video into interactive, personalized coaching by analyzing a learner’s performance and delivering actionable feedback in natural language. The goal is to close the feedback loop that is essential for effective skill mastery, particularly in physical domains such as sports, dance, and fitness where subtle body movements are difficult for learners to self-assess. The system is designed to broaden access to high-quality instruction and has potential applications in public health, rehabilitation, and inclusive education, including support for blind and low-vision learners.

The project develops SAGE (Skill Assessment and Guidance Engine), a multimodal video-based coaching system that enables interactive skill learning through automated feedback. The research focuses on three core areas. The first area, data and benchmarking, includes the creation of a formal evaluation protocol for interactive learning systems and a benchmark for multi-turn coaching that measures improvement over time. The second area, multimodal video modeling, entails fine-grained analysis of human motion and generation of natural-language feedback grounded in visual evidence. This includes construction of video-commentary datasets derived from structured coach-learner interactions collected through online communities and remote coaching sessions. The system also introduces a framework for generating actionable feedback and estimating learner proficiency using reinforcement learning and generative AI modeling to represent how learners would respond to given guidance. The final area, deployment and impact, centers around developing user-centered coaching systems and measuring learning outcomes in real-world settings. Overall, the system is designed with an emphasis on accessibility, including co-designed prototypes and evaluation for blind and low-vision users.